Collaborative Efforts of the South Africa National Research Foundation and the U.S. National Science Foundation

This project will conduct a forum on systemic reform of mathematics and science education. The forum, the second jointly sponsored by the United States and South Africa, will explore a variety of topics related to systemic reform, with particular emphasis on professional development, curriculum materials, and assessment as it relates to educational reform. It will provide opportunties to share experiences among U.S., South African, and Australian scholars who are both studying and implementing educational reform.